U.S.-Switzerland Cooperative Research: Translational Regu- lation of B-glucuronidase

This award will enable Dr. Kenneth Paigen and one of his colleagues, both from the University of California, Berkeley, to collaborate with Drs. Kurt Pfister and Richard Gitzelmann, University Children's Hospital, Zurich, Switzerland. They will study the genetic regulatory system of the B-glucuronidase gene in mice. Three classes of regulatory mutations involving the gene have been described: (1) systemic mutations that change enzyme levels in all cells, (2) temporal mutations that change the appearance of the enzyme during development of certain tissues, and (3) hormone- response mutations that change the ability of the B-glucuronidase gene to be activated by androgens. The proposed research will be concerned with the effects of the mutations in cell culture systems. The research is expected to lead to further knowledge of the regulation of B-glucuronidase gene expression and of the mechanisms of gene expression in general. It may also ultimately contribute to a better understanding of a particular genetic disorder associated with the lack of this gene's expression. Of more general interest are the expected benefits to be derived from the definition and better understanding of the regulatory steps and mechanisms from mRNA translation to final protein localization and action. The research will benefit from the international collaboration because Dr. Paigen's laboratory is expert in dealing with the genetics and molecular biology of the B-glucuronidase system, and the Swiss laboratory is experienced in applying techniques of cell culture and protein biochemistry to questions of B-glucuronidase regulation. The two laboratories have a successful history of collaboration, and this award will support the international travel necessary for the U.S. group to continue its part of the joint effort.